CAREER: Integrated Production System Operations and Facility Layout Decisions

Meller 9623605 This Career Award project presents a research and education plan driven by the integration of production system operations and facility layout decisions. The objective is the development of an integrated layout model that can be used to evaluate how changes in production system operations impact the facility layout. Features include the ability to highlight when changes to a layout will be economically feasible from a production operations perspective. Impacts of the project include an improved research model for facility layout decisions, new case-studies and educational algorithms for instructional purposes, and engineering internships for graduate students. Project objectives are pursued with substantial industrial interaction and support.